Collaborative Research: X-Chromosome Function During Spermatogenesis

The goal of the proposed studies is to understand the function of the X chromosome and X-chromosome inactivation (XCI) during mammalian spermatogenesis, and the relation of these events to meiosis and spermatogenic differentiation. Since abnormalities in either structure or number of X chromosomes almost inevitably result in male (but not female) sterility, the cycle of X-chromosome activity in male germ cells is likely to be an integral, controlling element of their meiotic activity and differentiation. The development time of X-chromosome expression and XCI during spermatogenesis will be determined to test the hypothesis that XCI coincides with the onset of meiosis. The genetic extent of XCI will be examined to test the hypothesis that inactivation includes genes in the non-pairing region, but not those in the pairing region, of the X chromosome. The genetic control of XCI will be investigated to determine if it is controlled from a single site on the chromosome and to test the hypothesis that it is not associated with hypermethylation of regulatory sequences. The expression of X-linked genes will be investigated in sterile mouse mutants to determine if the deleterious effect of supernumerary X chromosomes on spermatogonia is due to failure of dosage compensation and if the lethal effect of structural abnormalities of the X chromosome on spermatocytes is due to failure of XCI. These studies will lead to more complete understanding of the biological role of sex chromosomes during male meiosis and germ cell differentiation.